Finite Element Methods of Least-Squares Types

9705793 P.Bochev The main focus of this research is directed at the design of fast, robust and accurate algorithms for the numerical solution of nonlinear partial differential equations. To accomplish these objectives we consider finite element methods based on application of least-squares variational principles. Such principles offer significant computational and theoretical advantages that are not present in other discretization schemes, e.g., mixed Galerkin methods. Most notably, corresponding least-squares methods are not subject to stability constraints, such as the inf-sup condition, and lead to symmetric and positive definite algebraic problems. The principal objective of the research will be to develop, analyze and implement finite element methods that can fully exploit the inherent advantages of the least-squares formalism, especially in the context of realistic applications. Our efforts here will be guided by the impact of both the mathematical structure of model problems and the computational features of least-squares principles upon the algorithmic design of the methods. The research will be carried in the context of systems of partial differential equations that are compact perturbations of linear elliptic operators. Least-squares principles for these systems are obtained through minimization of problem-dependent, norm-equivalent functionals. As a result, discretization of the associated Euler-Lagrange equations leads to systems of nonlinear algebraic equations having symmetric and positive definite Jacobians. These equations are solved using Newton linearization combined with robust continuation techniques. To address large-scale computations, at each Newton step the linearized systems are solved using robust preconditioned iterative methods implemented without assembly of the discretization matrix. Design of efficient preconditioners for these iterative solvers will exploit novel ideas, including the use of negative norms in the least-squares functionals. With the advent of new and more powerful digital computers numerical simulation is emerging as a viable and cost-effective alternative to expensive field experiments and tests. However, despite the increased computational power there is still a real and existing need to develop fast and robust computer algorithms for a wide range of industrial applications. This is especially true for applications involving numerical solution of the Navier-Stokes equations. The tremendous practical importance of these equations stems from their fundamental role in the modeling of fluid flows arising in such diverse applications as atmospheric motions, flow of air around aircraft, and lubrication of ball bearings. At the same time numerical solution of the Navier-Stokes equations in realistic settings remains difficult and computationally challenging. Indeed, large-scale solution of these equations in three dimensions required in applications such as weather forecast, hurricane tracking, and modeling of air pollution, continues to be an outstanding problem which motivates this research project. Our principal goal is to develop new, reliable and accurate numerical algorithms for the Navier-Stokes equations that can be used for computations carried in realistic settings. To accomplish this we explore alternative ways to discretize the model problem, i.e., to replace this model by a set of equations that can be solved on a computer. The research will focus on the development of novel discretization techniques leading to equations that require less computational resources and that are easier to solve than the equations obtained by standard methods. This allows us to develop more robust, faster and easier to use codes. In addition to fluid flow problems the research will also target numerical solution of mathematical models arising in elasticity, electromagnetics and reaction-diffusion applications, among others.